Hi-Resolution Fly's Eye (HiRes) Program at Columbia's Nevis Laboratories

9904048
Shaevitz
The studies of the very highest energy cosmic rays are of fundamental importance. An indication of a break in the distribution at HiRes (Hi-Resolution) experiment energies suggests a new source, most likely extragalactic, of cosmic rays. HiRes presents the opportunity to study the properties of these extragalactic cosmic rays and possibly their sources. Columbia University proposes to play a major role in this experiment.